Approaches to Communication in Games

This research consists of four projects related to effective transmission of information between agents. One study will investigate evolutionarily stable outcomes in cheap-talk games. Communication about private information cannot be ignored in an evolutionary framework. It forces players to obtain efficient payoffs when no conflicts of interest exist. The goal is to study whether evolutionary forces favor the informed party, whether messages are used efficiently when talk is cheap but not free, and whether nontrivial communication must occur when players' interests partially coincide. The project will also characterize how much must be communicated when agents have different interests. A related study will investigate games of communication that change over time in order to discover whether words will take on meanings that apply in more than one context and whether agents will use words honestly in complicated settings even if it is against their short-term strategic interests. The third project will provide a general framework for studying deviation-based equilibrium refinements and dynamic behavior in games. This topic has strong connections with communication, although it is not directly related to communication. This study will better our understanding of results in situations where evolutionarily stable sets of strategies fail to exist. The fourth project will study a specific model of communication in order to describe conditions under which it is optimal to delegate decision-making authority to an informed expert (the doctor in a doctor-patient relationship). In the model the patient may be unable to acquire perfect information either because he is boundedly rational or because it is not in the best interests of the doctor to communicate completely. It may be inappropriate for the patient to give complete decision-making authority to the doctor either because the doctor's preference is different from the patient's or because the doctor does not know the patient's preference. Preliminary study suggests that full communication may be impossible whenever the doctor and the patient have different preferences.